Oceanographic Instrumentation 2006

0604436
Willis
This award to Oregon State University provides instrumentation for use on the research vessel Wecoma, an NSF-owned ship operated by OSU as part of the University-National Oceanographic Laboratory System research fleet. The award supports acquisition of a liquid scintillation counter with multiple sample capability for use both in scientific analysis of samples using low level radioisotopic tracers and for monitoring vessel laboratories and living areas to ensure they are free of spills. This shared-use capability will be available to all funded users of the R/V Wecoma, and will provide a substantial advantage to marine scientists during 2006 and future years.
***